Aquisition of a High Mass, High Resolution Mass Spectrometer

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from Woods Hole Oceanographic Institution requests funding for acquisition of a hybrid QQ quadrupole tail that will convert an existing High Resolution Mass Spectrometer into a state-of-the-art Magnetic Sector Mass Spectrometer (MS-MS). The entire facility will be available for shared-use by the oceanographic research community and will support the research efforts of many NSF-funded scientists. The quadrupole extension adds the capability of obtaining structural elucidation of high molecular weight macromolecules. The PIs are particularly interested in analyzing high-molecular- weight, marine organic materials, such as the products of chlorophyll decomposition and structural variations of kerogens and polysaccarides.